Applications of Algebraic Logic and Universal Algebra to Computer Science (June 1988, Ames, Iowa)

Iowa State University will host a four-day conference in June 1988, on the applications and methods of algebraic logic and universal algebra in theoretical computer science. Their primary goal is to bring together computer scientists and mathematicians working in this area to explore the interests and problems they have in common, and establish some avenues of communication.